U.S.-Italy Cooperative Research: High Energy Cosmic Rays with Macro Dectector

This award will support collaborative research between Professors Alex Marin and Steven Ahlen of Boston University and Professor Giulio Auriemma of the Universita di Roma, Italy. The researchers intend to continue research in particle physics and astrophysics using the world's largest and one of the most sensitive and highest resolution underground cosmic ray detectors, MACRO. The study of the universe has in some sense evolved into a branch of particle physics. New discoveries are possible that could provide experimental evidence or constraints for the theoretical predictions of the Grand Unified and Supersymmetry Theories. Furthermore, questions pertaining to the nature of high energy cosmic rays, their origin, acceleration and propagation mechanisms may be addressed throughout the observation of high energy multiple muon bundles that penetrate to the detector depth underground. By virtue of MACRO's depth underground, fine grain tracking capability, and large acceptance, it is ideally suited for a comprehensive study of multiple muon bundles that reflect the nature of the high energy primary cosmic rays interacting at the top of the atmosphere.